Periodic Orbital Quantization by Harmonic Inversion

Taylor
The calculation of individual eigenstates and resonances using semiclassical dynamics is a highly non-trivial problem. The present research examines some new high resolution spectral analyzers which enable the extraction of these eigenvalues from a recurrence function of finite length. The method has broad generality and appears to be useful for other problems such as signal processing where short time sampling limits conventional Fourier approaches.